Ninth International Workshop on Plant Membrane Biology, July 19-24, 1992, in Monterey, California

The Ninth International Workshop on Plant Membrane Biology is being held for the first time in the U.S. on July 19-24, 1992 in Monterey, California. This conference/workshop brings together top workers in the field of plant membrane biology to present their latest research, to exchange ideas and techniques and to foster collaborations. The subjects to be included are the structure, function and regulation of membrane transport proteins, metabolic compartmentation, membrane receptors, light and hormone-mediated signal transduction, membrane protein targetting, and transport through plasmodesmata. Two instructional workshops, including manufacturer-sponsored equipment demonstrations, are planned on patch clamping and intracellular calcium measurements. Nobel laureate, Bert Sakmann, will present the keynote address. It is anticipated that the exciting scientific program combined with the scenic environment should provide ideal conditions for the exchange of information and the generation of new ideas which will greatly benefit U.S. scientists and students working in this fundamental area of plant biology.